Collaborative Proposal: Operating Center Proposal for Continuing an Industry/University Cooperative Research Center: I/UCRC for Measurement and Control Engineering

The Measurement and Control Engineering Center is an interdisciplinary research and educational Center directed toward the development of new sensors and control systems. These technologies are critical to the modernization and continued competitiveness of US manufacturing industries, including chemicals, petrochemicals, and pharmaceuticals, inter alia. This action provides continued funding for a multi-site Center with the lead site at the University of Tennessee and an affiliate program in a critical needs industrial area (advanced control, including modeling and simulation) at the Oklahoma State University.